Acquisition of an EPR Spectrometer for Chemistry

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at West Virginia University acquire an electron paramagnetic resonance (EPR) spectrometer. This equipment will enhance research in a number of areas including the following: (1) characterize the electronic structures and spin delocalizations in metal complexes of unusual tetrapyrrole compounds, (2) establish the site of redox reactions of tetrapyrrole metal complexes, (3) paramagnetic alkyl-nickel and hydrido-nickel complexes, and (4) characterization and investigation of the highly electrophilic paramagnetic early transition metal complexes. An electron paramagnetic resonance (EPR) spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals which are often essential for the initiation of tumor growth and/or a variety of chemical reactions.